Development of an Optimised Flux Monitoring and Control Capability for Materials Synthesis in MBE

9500380 Lee Instrumentation will be purchased to establish a fully integrated, automated capability for optimizing growth of novel III-V alloys and superlattices, with monolayer and submonolayer control of layer thickness in III-V materials. ***